Non-Hydrolytic Gel Processing and Optical Properties of Wide-Bandgap Gallium Nitride-Aluminum Nitride Semiconductor Quantum Dots

9411179 Risbud The focus of the present research program is to investigate the synthesis, processing and optical properties of Gallium Nitride-Aluminum Nitride nanometer size semiconductors that will be sequestered in a glass matrix. These quantum dot materials will be prepared by a novel combination of organic precursor based synthetic chemistry routes used for nitride compounds and an anhydrous non-hydrolytic gel process for the glass matrix. Composite materials containing Gallium Nitride and Gallium Nitride-Aluminum Nitride quantum dots in glass will be synthesized and characterized for nanostructure using high resolution electron microscopy techniques and small angle x-ray scattering. Parallel optical spectroscopic characterization will be performed to obtain absorption and luminescence data that will be correlated with measured sizes of quantum dots in samples processed under a variety of conditions. The results of the proposed work will contribute in a fundamental way to the new science of wide band gap nitride semiconductors for photonic device applications. %%% The preparation of materials with architectures as small as five orders of magnitude smaller than the thickness of human hair (nanometer sizes) is an important frontier area of contemporary materials research because in this size range materials show dramatic changes in optical and electronic properties. Nanoclusters of semiconductor materials like silicon or compounds of two or more elements will have a significant impact on the emerging technologies of miniature lasers, flat panel displays, and laptop computers. An important feature of this program is the training of graduate and undergraduate students in a fundamentally and technologically significant area of materials and processing research. ***